CAREER: Towards Trustworthy Participatory Sensing

Participatory sensing is a revolutionary paradigm where
people sense their environment, and voluntarily share this
information using pre-existing communication infrastructure. It
has tremendous potential to advance knowledge in diverse fields
including urban planning and intelligent transportation by enabling
large-scale sensing without dedicated infrastructure. Achieving this
potential hinges on encouraging sensor data sharing between users
who may not trust each other.

The objectives of this project are to design and implement a trustworthy
participatory sensing system, encompassing algorithms for (i)
certifying the integrity of published sensory content, so users can
trust it, (ii) sensory content protection, so more users contribute
data, and (iii) anonymous content sharing between producers and
consumers. It explores a novel approach for trustworthy
participatory sensing with a trusted hardware platform for each
sensor, which besides the main processor, has a tamper-proof trusted
hardware element that only executes code signed by a trusted third
party. This recasts the integrity and privacy problems in a new way,
allowing for simple, scalable and versatile solutions. Such a system can
curb potential abuse, encourage user participation and thereby enable
participatory sensing.

Expected project results include a new system model and algorithms for
trustworthy participatory sensing, an implementation on the Intel AMT
platform, and system demonstration in a real-world intelligent
transportation application. The results will be disseminated via
open-source software, conference publications and exhibits at the Oregon
Museum of Science and Industry. The project also consists of
multi-level educational activities to promote under-represented groups
in computing.